AB15: A bZIP Protein Regulating ABA Response

The plant hormone abscisic acid (ABA) regulates many aspects of
plant growth and development affecting crop productivity, including
embryogenesis, water relations and tolerance of a variety of environmental
stresses. Our long-term goal is to study the function and interaction of
elements involved in response to ABA. One gene required for normal ABA
response, the Arabidopsis ABA-insensitive 5 (ABI5) locus, has been
identified by positional cloning in our lab and found to encode a protein
with homology to the bZIP-domain class of transcription factors. The
experiments outlined in this proposal will characterize the expression and
biochemical function of ABI5, and investigate its interactions with other
gene products in coordinating seed development and response to ABA. Our
hypothesis is that ABI5 participates in seed- and/or ABA-regulation of gene
expression, possibly in combination with other transcription factors. These
studies should have general relevance to understanding the signaling
network(s) regulating embryonic and hormonally regulated gene expression.
Furthermore, they may have practical significance for potential
manipulation of seed nutritional and storage qualities or vegetative stress
tolerance.